IUCRC Phase II Arizona State University: Center for Accelerated Real Time Analytics (CARTA)

Accelerated and real-time analytics is a leading edge of the smart data revolution, pushed by advances in internet-connected sensor hardware on one side and accelerated AI/ML analytics on the other. These technologies include AI/ML, cognitive, quantum, neuromorphic, and edge computing combined with new classes of sensory and programmable hardware components, active storage, flash storage, in-memory cloud systems, embedded sensors, etc. They address many pursuits of national defense and cybersecurity, weather and wildfire prediction, health- and disease-monitoring, Industrial IoT, etc. In IUCRC CARTA Phase II, we will develop new accelerated and real-time approaches to these technologies relevant to our industrial and agency partners.

We will leverage our cutting-edge research in AI/ML and programmable cyber-systems to conduct collaborative CARTA research. Our research areas include accelerated medical image analytics, explainable/interpretable AI/ML for medical and vision/language models, digital twins for dynamical systems with acceleration, and physics-based modeling with AI/ML for improved understanding, programmable coupled software and hardware for accelerated analytics. Our research will be primarily “application neutral.” Therefore, the techniques we will develop can be applied with modifications across multiple industry sectors, including cyber security, healthcare and medical, dynamic systems, environment, and business intelligence. The technologies we will explore include semi/un-supervised learning, federated learning, programmable architectures, language/vision models, real-time simulations, and blockchains.

Our project will benefit businesses by providing a larger pool of highly skilled workforce. We will disseminate the results of this collaborative research with industry widely by publishing them in appropriate journals and conferences. We will leverage our many programs for our undergraduate and the graduate populations to recruit students for summer internships at our industry partners and to do research in CARTA projects. We will also leverage our MS and PhD in Data Science, Analytics and Engineering programs to find opportunities for the students to do projects as industry interns.